Collaborative Research: EAGER: NAIRR Pilot Expansion: FA1: Advancing AI Research with NAIRR Workshop Series on Cybersecurity, Edge AI, and Autonomous Driving

The National AI Research Resource (NAIRR) provides U.S.-based researchers with high-performance computing, data, and AI tools, fostering broad access to cutting-edge AI research. Training scientific researchers to fully utilize NAIRR capabilities is critical in advancing the nation’s science and technology. This project, a collaboration between Oakland University and Worcester Polytechnic Institute, aims to increase awareness and promote broader adoption of the NAIRR Pilot.

The project will organize two 12-workshop series over two years, offering hands-on training for emerging researchers to utilize NAIRR for using AI in three critical domains: AI for Cybersecurity & Trustworthy AI, Edge AI, and Autonomous Driving. These workshops will provide guidance on integrating NAIRR’s computational resources, datasets, and AI frameworks in the R&D efforts to develop secure, efficient, and impactful AI use cases in these three domains. It will equip researchers with the knowledge and tools to develop secure and innovative AI systems, fostering advancements in cybersecurity, autonomous systems, and other interdisciplinary AI applications. The NAIRR resource utilization training will guide participants in using NAIRR resources to further research and prepare students for projected future workforce needs.